Quartz Crystal Microbalance Studies of Atomic-Scale Friction

Experiments involving a quartz-crystal microbalance (QCM) are proposed, some specifically designed to test theories of atomic- scale friction, others to explore practical applications of the QCM technique itself (including its utilization for the formation of patterned nanostructures).